Travel Grant for the 3rd International Workshop on Localisation and Bifurcation Theory for Soils and Rocks

The objective of this Workshop is to bring together in one place a group of specialists of localization and bifurcation analysis of geomaterials, to collect and debate the main results obtained during the past three years, and to evaluate the perspectives open by new experimental methods and analytical/numerical tools. The scope of the Workshop includes the experimental methods and results, analytical solutions, and numerical methods/solutions. Besides fundamental research findings, applications in mining, petroleum, and building industries will be presented.